REU Sites: DIMACS/DIMATIA U.S./Czech International REU Program

DIMACS, the Center for Discrete Mathematics and Theoretical Computer
Science, headquartered at Rutgers University, will run an REU program in
collaboration with DIMATIA, the Center for Discrete Mathematics,
Theoretical Informatics, and Applications, based at Charles University
in Prague, Czech Republic. This program will provide an exciting
research experience for undergraduates that will help them decide on
future educational and career paths. 17 students from all across the
U.S. and from the Czech Republic will be recruited annually. Most of the
program will take place at DIMACS, but some of the U.S. students will
spend time at DIMATIA and all participants will get a taste of the
international scientific enterprise. The program will include a pilot
academic-industrial co-mentoring program and will collaborate with a
Department of Homeland Security REU program at DIMACS.

Scientific fields to be emphasized include graph theory, computational
geometry, logic and complexity theory, and combinatorial optimization,
with applications to DNA topology, biomedical engineering,
epidemiological modeling, economic applications involving e-commerce,
information management in massive data sets, etc. Students will be
exposed to modern industrial research on network analysis, sensor
location, and internet auctions, as well as to homeland security
applications of methods of computer science and mathematics. The program
will have broader impacts through increasing scientific collaborations
between U.S. and Czech researchers and students and, through
dissemination of the model, raise the awareness of a large community
about opportunities for young people in international cooperation and
collaboration. The program will also include career counseling and
guidance on how to make presentations and should greatly influence the
choices about further education and future careers of the students
involved.